Analog and Digital Communications Engineering Laboratory

This project will provide electrical engineering undergraduates with thorough training in modern communications engineering. Instruments to be purchased include apparatus to modulate, transmit, and detect radio- frequency signals by AM, FM, SSB, and a variety of digital techniques. They also include counters, oscilloscopes, spectrum analyzers, and noise generators to aid in the analysis of signals. Communications engineering has been emphasized less than some other fields of electrical engineering, yet electronic communication is vital to the operation of most electronic devices, particularly computers. Future communications networks will be required to perform better than existing systems, and students need to be trained in all major methods of communication in order to design these networks effectively.